On Foundational Issues in Computer Science

This research consists of three directions. The first direction is devoted to average case complexity. Specific issues include natural complete problems, reduction theory, and specific graph problems. The second direction involves a variety of other complexity issues. Specific issues include time-space trade-offs, nontraditional approaches and linear time. The third direction is devoted to finite model theory. Specific issues include classical first order theorems and the logic of functions.